25th International Conference on Mathematical Geophysics

This proposal requests funds to help support meeting costs and travel expenses of U.S.
participants to the 25th International Conference on Mathematical Geophysics to be held
at Columbia University in New York City from June 16-18, 2004. The Conference on
Mathematical Geophysics meets every two years and is sponsored by the Committee on
Mathematical Geophysics of the International Union of Geodesy and Geophysics.

Intellectual merits This year's conference is titled Frontiers in Theoretical Earth Science
and brings together earth scientists, physicists, applied mathematicians, and others who
seek to develop new ideas for better understanding the processes and properties of the
Earth. This year, the meeting will survey the current and future state of theoretical Earth
sciences ranging from the core and mantle to the surface, oceans, and life. In particular
the meeting emphasizes advances in theory, techniques such as advanced computation and
data analysis and new problems and observations in need of theoretical understanding.
This meeting provides a single multi-disciplinary forum for the exchange of ideas and
techniques across the disciplinary boundaries in the Earth Sciences The conference web
site can be found at http://www.ldeo.columbia.edu/~mspieg/CMG2004/.

Broader Impacts This meeting provides a rare opportunity for students and early-career
scientists from across the earth sciences and applied mathematics to interact with senior
scientists in a small informal setting. This meeting also forms a principal activity of
Columbia's NSF IGERT Joint Program in Applied Mathematics and Earth & Environ-mental
Sciences. It will be staffed by current IGERT graduate students and will provide
excellent exposure for these students to a wide range of research opportunities, new peers
and senior scientists. Space permitting, the oral sessions of this meeting will be open to the
general public.